3D Reconstruction of Icosahedral Viruses from X-ray Scattering Data

The objective of the proposed research is the development of new methods for determining the structure of small spherical viruses based on x-ray scattering measurements. Research in this area is timely because synchrotrons allow the measurement of qualitatively superior data and new methods are needed in order to fully exploit the data. For instance, it will be possible to study virus dynamics, e.g., maturation and disassembly, in solution: the high intensity of the x-ray beam allows the recording of a solution scattering pattern in roughly 100 ms and the quality of the data, in terms of the ability to make low-angle scattering measurements and the sensitivity of the detectors, is very high so that a low-resolution structure can be reconstructed from a single 100 ms snap shot and therefore the evolution of the structure can be tracked. This is an interdisciplinary collaboration between the principal investigator, in the School of Electrical Engineering, and Professor John E. Johnson, in the Department of Biological Sciences. It combines image processing, applied mathematical analysis, and numerical computation expertise from the electrical engineering side with biological, biophysical, and x-ray scattering experimental expertise from the biological sciences side. The major theme that extends through all of the proposed work is the need to exploit the icosahedral symmetry present in small spherical viruses. The principal investigator has new mathematical results in icosahedral harmonics and methodology based on these results will allow the development of reconstruction methods which exploit the symmetry in a much more natural and computationally attractive fashion than has been possible in the past. Work is proposed in three areas: Reconstruction of 3D low-resolution viral structure from solution x-ray scattering patterns: A model of the virus is proposed which exactly exhibits the icosahedral symmetry. An iterative recon struction algori thm, which is an significant generalization of the standard electron density modification algorithm, is proposed. Significance: Successful reconstruction would allow easy low-cost surveys of virus structure since no crystallization is required; would provide new starting points for reconstructions of high-resolution structures based on crystal x-ray diffraction data; and, most importantly, would enable the study of virus maturation and disassembly in the natural solution environment. Nucleic acid packing and nucleic acid-protein interactions: Small spherical viruses provide an elegant and relatively simple model system for studying these problems. However, because the bulk; of the nucleic acid in a virus does not exhibit icosahedral symmetry, the protein is visible at atomic resolution in a high-resolution x- ray diffraction experiment while the nucleic acid is not. Therefore, in order to extract the maximum amount of information concerning both protein and nucleic acid from the x-ray diffraction experiment, it is necessary to use different models for the protein and nucleic acid. Such models and least-squares type algorithms for estimating the parameters in the models from low-resolution crystal x-ray diffraction data are proposed. Significance: Successful reconstruction will validate the low-resolution crystal x-ray diffraction data, which is difficult to measure, and provide an alternative view of the nucleic acid distribution and its interaction with the protein capsid based on x-ray diffraction rather than cryo electron microscopy data. Refinement using incomplete crystal x-ray diffraction data sets: In many cutting-edge problems the data set is incomplete due to a limited amount of virus, limited synchrotron time, or inability to reliably grow high-quality crystals. Because the virus particle has icosahedral symmetry, it follows that the diffraction data also has icosahedral symmetry which, in the simplest case, implies that the data is 60-fold redundant. Data that is 5-fold redundant is typically sufficient to refine a structure. Therefore, large amounts of the data (e.g., 80%) can be missing and it should still be possible to refine the structure. However, standard algorithms and software require that a complete set of data be recorded. Therefore, based on the 60-fold redundancy, the incomplete data set is interpolated to generate a complete data set. However, the current interpolation methods do not exploit the icosahedral symmetry of the data and are therefore inaccurate. We propose to develop and implement more sophisticated interpolation methods that will exploit the icosahedral symmetry. Significance: Success in this work will allow the solution of new structures from existing previously unusable data sets.